Non Parametric Estimationa and Testing with Demand Applications

There has recently been a great deal of theoretical econometric work in semiparametric and nonparametric estimates that converge at or near parametric, root N rates. These estimators generally consist of estimating as finite number of parameters in the presence of an infinite dimensional nuisance parameter (the nonparametric component). The goal is reasonably precise estimation and testing of parameters of interest while minimizing or eliminating arbitrary function form restrictions. This project contributes to this body of econometric theory in ways that are particularly relevant for empirical work. The project applies the theory empirically to a range of problems in consumer demand analysis. More specifically, the project has four closely interrelated parts: 1) Refining and extending existing techniques of estimating finite dimensional expectations of unknown functions and their derivatives at root N rates; 2) Constructing moment based consistent, nonparametric hypothesis tests of regression, density, or derivative constraints; 3) Constructing a semiparametric, "no search," root N Converging estimator of multiple linear index models that can handle discrete as well as continuous regressors, and can deal with general forms of heteroscedasticity including random coefficients; 4) Applying the above to nonparametric estimation of Slutsky substitution matrices, nonparametric testing of homogeneity and Slutsky symmetry, semiparametric estimation of discrete or multiple limited dependent variable choice models, and other cross sectional demand applications.